REU Site - Summer Research Program in Physics

The Bucknell University "Summer Research Program in Physics" will give 8 undergraduate students per summer the opportunity to collaborate with a member of the Bucknell physics faculty for 10 weeks on his or her research. Students will be recruited from around the country. Bucknell's setting as a small liberal arts college provides the perfect environment for some student's first encounter with full-time research. The level of student-faculty interaction will be high. This immersion in a research environment is intended to complement traditional classroom experiences of the students. For many it will be their first contact with the excitement and demands of full-time research. Participation will help students make career choices, and will provide specific preparation for those that continue on to graduate studies in physics. All of the students will live together on the Bucknell campus, conduct most of their research in on-campus facilities, and participate in weekly departmental seminars and colloquia. We will be offering projects in theoretical physics (statistical physics, gravitation, quantum optics), experimental physics (biophysics, atomic physics, nonlinear dynamics and pattern formation), computer simulation, and astronomy.